Student Travel Support for ACM HPDC 2015

24th ACM International Symposium on High Performance Distributed Computing (HPDC) seeks to increase student participation in symposium and the field. The proposed funding would support the travel of eligible US students to the symposium. Recipients would be able to attend the main conference, workshops, and tutorials. Travel grants encourage the research interests and the involvement of students in the field who are not well funded and those who are just beginning their participation in the field or are interested in entering it. A special effort is made to reach out to women and under-represented minorities.